Purchase of an In-Situ Infrared Spectrometer, Gel Permeation Chromatograph, and Melt Rheometer Ensemble

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Virginia Polytechnic Institute and State University will purchase an In-Situ Infrared Spectrometer, Gel Permeation Chromatograph, and Melt rheometer Ensemble. This instrumentation will facilitate research in the following areas: a) studies of novel living chain growth polymerization; b) melt phase step-growth polymerization; c) functional oligomer crosslinking studies d) synthesis of polyketides from ketene dimers; e) development of bifunctional catalysts for enolate-based C-C forming reactions; f) detection of reactive intermediates; g) dynamics of reversible gels; h) melt conversion of phenolic-epoxy materials; i) flame retardant phenolic matrix resins for polymer matrix composites; and j) characterization of branching in polyolefins.

This ensemble of instruments, infrared spectrometer, gel permeation chromatograph (GPC), and melt rheometer, are critically needed analytical instruments for polymer scientists. They allow the analysis of macromolecules, which tend to be insoluble or soluble only in very toxic solvents. Thus the in-situ capabilities of the spectrometer are key. In addition, the GPC is well-suited to handle toxic solvents and high temperature analysis.